Collaborative Research: AF: NSF-BSF: Beyond Information-Theoretic Limits: Randomness Extraction and Coding Against Computational Adversaries

Modern computers depend on two basic resources that are often taken for granted: good random bits and reliable ways to send and store information. Randomness supports encryption, privacy, randomized algorithms, and secure public protocols; error-correcting codes help data survive noise, failures, and tampering. Classical mathematical models in information theory often assume that randomness sources, communication channels, and attackers can behave in completely arbitrary worst-case ways. Under such assumptions, many desirable guarantees are impossible. This project studies a more realistic setting in which the processes that generate randomness, transmit information, or attack a system are limited by feasible computation. By developing new methods for producing reliable randomness from imperfect physical sources and for communicating reliably over noisy or adversarial channels, the project will strengthen the scientific foundations of secure and resilient information systems. These advances may contribute to secure communications, robust data storage, privacy-preserving systems, and trustworthy digital infrastructure.

Technically, the project develops computationally bounded models of information at the interface of complexity theory, cryptography, and information theory. It has three interrelated research directions. First, it will construct deterministic randomness extractors for efficiently samplable weak sources, including low-entropy classical and quantum sources and sources subject to leakage or bounded-depth generation. Second, it will construct non-malleable extractors whose outputs remain random even when an adversary observes the extractor applied to tampered or correlated versions of the same source, with emphasis on adaptive tampering and many correlated sources. Third, it will develop error-correcting and non-malleable coding schemes for computationally bounded channels, including “best-of-both-worlds” codes that recover the original message when the channel introduces limited errors and otherwise ensure that decoding reveals no meaningful relation to the original message. The technical approach will combine complexity-theoretic hardness, de-randomization methods, extractor constructions, and coding-theoretic reductions, with particular attention to quantum polynomial-time as a model for physically realizable processes.